New Concepts for Multifunctional Asymmetric Catalysis

With this Award, the Chemical Synthesis Program of the NSF Division of Chemistry supports the research of Professor Daniel Seidel of the Department of Chemistry at the University of Florida. The ability to prepare complex molecules in the most cost-effective way possible is directly dependent on the availability of sustainable synthetic methodologies. The new synthetic methods that emerge from this work may provide novel ways to make biologically important compounds such as polycyclic ethers, amines, and indole containing substances, which should, in turn, help advance the chemical industry, which itself is linked to the US economy. The research provides training for graduate and undergraduate student, preparing them for future careers in industry and academia. Underrepresented minority students are actively recruited to participate. Students working on this project gain expertise in modern synthetic methods and laboratory techniques while being exposed to an intellectually stimulating and challenging environment.

This project aims to advance the field of asymmetric catalysis on a fundamental level through exploration of conceptually new and underdeveloped methods of substrate activation. A major goal is the development of reactions that produce enantiomerically enriched products through intervention of chiral ion pairs. Novel Bronsted acids and hydrogen bond donor catalysts are explored to facilitate enantioselective processes and address challenging synthetic problems. A focus is on reactions that proceed via the intermediacy of highly reactive oxocarbenium ions and related species. Multifunctional catalysts are being developed with the goal of achieving enzyme-like catalysis under mild reaction conditions.